Digital Government: Testbed for High-Speed 'End-to-End' Communications in Support of Comprehensive Emergency Management

EIA-9983463
Bostian Charles W.
Virginia Polytechnic Institute

Digital Government: Testbed for High Speed "End to End" Communications in Support of Comprehensive Emergency Management

This project will explore the use of rapidly deployable "last mile" aerostat-based wireless high-speed communications in the environment of emergency management. The technology base will be Local Multipoint Distribution Service radio. An important element of the work will be rapid deployment, so equipment must be portable and able to access remote databases and GIS engines; a base station and two field units will be constructed. The primary partner agency initially will be the National Response Center, which is responsible for responding to chemical spills, toxic agent release, and related environmental problems. Other agencies, such as the Federal Emergency Management Agency, will be targets for future partnerships